Nuclear Theory (Physics)

It is proposed to continue research on transport theory in heavy ion collisions. Two body collisions are treated via a relaxation time method. This will be compared with other methods, both in simple and fully 3D geometries. The effects of pion production will be investigated, and some estimates made of the nuclear equation of state at moderately high densities.